Undergraduate Faculty Enhancement in Semiconductor Optoelectronics

Semiconductor optoelectronics is becoming increasingly important in science and engineering. It is therefore highly desirable that engineers and scientists should be introduced to optoelectronics at an early stage in their careers. Much of the relevant material can and should be incorporated in undergraduate curricula. The Center for High Technology Materials at the University of New Mexico, in partnership with Sandia National Laboratories, is conducting a seven day workshop in semiconductor optoelectronics for twenty-five undergraduate teaching faculty in university physics and engineering departments. The workshop includes lectures, laboratory tours/demonstrations, and hands-on laboratory sessions in epitaxy of III-V direct-gap semiconductors, fabrication, processing and characterization of optoelectronic devices such as semiconductor injection lasers, and application such as optical fiber communications. This project facilitates the inclusion of semiconductor optoelectronics as an undergraduate discipline by developing within faculty a basic knowledge and appreciation of the subject, providing direct contact with some of the latest experimental and theoretical advances, and by establishing and ongoing and mutually beneficial interaction between undergraduate faculty and a national center of excellence in the field.